Direct Visualization of Intramembrane and Surface Structure Relationships

This work will develop two new strategies to visualize structural interrelationships between integral membrane proteins and adjacent elements on the true surfaces of membranes by electron microscopy. The first strategy produces a composite replica which allows simultaneous visualization of intramembrane particles in a freeze-fracture replica and related surface elements in a superimposed replica of the freeze-dried membrane surface. The second strategy utilizes freeze-substitution methods to fix and dehydrate freeze-fracture replicas and membrane associated elements. By infiltrating these thin samples with a layer of resin we will obtain "en face" views of surface elements with respect to intramembrane structures without subjecting samples to freeze-drying. The value of these methods will be tested in studies of red cell ghosts and cultured muscle cells. This will allow a direct structural assessment of connections that cytoskeletal and extracellular matrix elements have to integral membrane proteins. Combined with antibody probes that allow the identification of specific components, these methods promise to provide important insights into the organization of differentiated membrane domains in a variety of cell types. External signals are received by cells at the external surface of the plasma membrane, and information about the signal is transmitted to the cell interior where biochemical and structural changes carry out the cell's response. The development of improved techniques for visualization of the detailed structure, organization and composition of cell surface molecules and the connection of surface molecules with intracellular skeletal structures will contribute substantially to understanding of the molecular basis of membrane physiology and transmembrane signalling.